Ship Operations Support

The year for ATLANTIS II begins with an ALVIN cruise on the MId- Atlantic Ridge. ATLANTIS II then enters a shipyard for biannual overhaul before proceeding to a cruise on the West Florida Escarpment and one in the Gulf of Mexico. The vessel then transits the Panama Canal and begins a series of ALVIN programs in the Galapaos Islands, the East Pacific RIse and the Guaymas Basin. An eighteen day non-ALVIN leg coring in the Sea of Cortez is scheduled before the vessel transits to the Juan de Fuca and Oregon Margin areas for and ALVIN dive series. Four legs in the San Diego area complete the year for ATLANTIS and ALVIN. R/V KNORR will return to Woods Hole after a fifteen month shipyard period during which the vessel was repowered and "stretched" thirty-four feet. After re-outfitting with science deck gear, the ship will be ready for service about June 15, the first cruise scheduled in a test of the newly reinstalled dynamic positioning system. The Marine-Light-Mixed Layer Program cruise south of Iceleand precedes a program on the Blake Plateau before KNORR transits the Panama Canal to begin the extended cruise scheduled in the South Pacific for the World Ocean Circulation Experiment (WOCE). The year ends with KNORR at sea in tech SOuth Pacific on a leg to Tahiti. The year for OCEANUS is comprised of nineteen voyages for a variety of disciplines, most of which are in and out of Woods Hole. The vessel makes an extended trip to the Madeira Islands for the deployment of sensors for the subduction program in the spring. The final cruise series of the year is in the southern tropical Atlantic for recovery and redeployment of gear placed by OCEANUS early in 1989. The year ends with the Vessel dockside in Woods Hole.